The Fourth International Symposium on Particles, String and Cosmology; Syracuse University; May 19 - 24, 1994

9315979 Wali The 4th International Symposium on Particles, Strings and Cosmology will be held on the campus of Syracuse University under the auspices of the Physics Department from May 19-24, 1994. Interdisciplinary in nature, the symposium will cover wide ranging topics of interest to both theorists and experimentalists and will attempt to provide as complete a picture as possible of the current status of Particle Physics, String Theories, and Cosmology. The interactions which will occur at the symposium are very important to progress in the field. ***